Paleogene Biostratigraphic Correlations of the Pacific Northwest

9406325 Nesbitt The proposed project is a study to revise and refine the chronostratigraphic correlation of marine Paleocene rocks of western Oregon. Washington, British Columbia and the Alaskan Peninsula. The currently defined biostratigraphic scheme for these rocks has numerous sources of error. These have been perpetuated because of the lack of recognition of facies controls, time- transgressive nature of the faunas, and biogeographical provincialism. This study will evaluate the existing molluscan biozones and define new biozones where needed. The molluscan zonal scheme will be correlated with foraminiferal and calcareous nannoplankton data supplied by collaborating micropaleontologists who are currently working in this area. Radiometric dates will be obtained from tuffs and other volcanic rocks interbedded within the appropriate sedimentary units. The zonal scheme for the Pacific Northwest will be correlated with worldwide time scales. This refined, reliable and globally relevant chronstratigraphy will be the foundation for future research projects on invertebrate and vertebrate phylogenies, faunal response to global climate changes, and boundary extinctions.